Midwest Comprehensive Regional Center for Minorities (MCRCM)

This project, developed under the leadership of Loyola University of Chicago, is establishing the Chicago Prototype Center for Minorities. Cooperating institutions and organizations, in addition to Loyola include the following: Chicago State University, Northwestern University, the Chicago Public Schools, and the Chicago Urban League.